Research in Elementary Particle Theory and Quantum Field Theory (Physics)

Several fundamental problems in the theory of elementary particles will be considered. These include the unification of fundamental forces and the types of matter, the replication of generations, the hierarchy of quark and lepton masses and mixings, the dynamics of possible preonic constituents of quarks, leptons and other particles of the standard model, the role of local supersymmetry in shaping such dynamics, quantum field theory methods of calculation of dynamical symmetry breaking, the theory of strings and superstrings, and possible small violations of Fermi and Bose statistics and TCP in the context of preonic local relativistic quantum field theory. Other studies will include models of CP violation, predictions of the electric dipole moment of the neutron, consequences of a preonic identification of four dimensional fields for superstring theories, the impact of elementary particle physics on the cosmology of the early universe, and ideas of compositeness.